Salish Kootenai College Bachelors of Information Technology Program

Building upon the current two-year Computer Science Associate Degree Program, Salish Kootenai College will develop and implement a Bachelors of Information Technology Program (BIT) using the TCUP five-year implementation award.

The structure of the BIT will enable students to obtain the most recent industry certifications such as those developed by Microsoft and Cisco and to pursue different educational tracks including networking, wireless communications, security and database administration. Components of the BIT will be offered online and through summer "boot camps", allowing working professionals the opportunity to upgrade their knowledge. Project activities include development of curriculum, faculty and facilities. Project funds will also support student recruitment, retention and internship programs.